An In Vitro Olfactory System

Among the central problems in studies of the sense of smell is to discover the ways in which electrical activity in neurons in receptor cells is processed into a form in which odors can be identified and their intensity recognized. The investigator has developed a system in which olfactory neurons from mice can be grown in culture along with olfactory bulbs (the part of the brain with which they connect) on plates from which it is possible to record from as many as 64 cells simultaneously. His preliminary work shows that the receptor neurons spontaneously generate action potentials in such cultures. In this project he will use odorants to stimulate the receptor cells while recording from those cells and cells of the bulb, to learn more of the nature of the transmittal of information at this level. He will attempt to determine the neurotransmitters involved by using pharmacological agents, and will use electrical as well as chemical stimulation of the receptor cells in order to sort out effects the chemicals might have on cells of the olfactory bulb. In addition, he will supplement the functional studies with anatomical studies at the levels of light and electron microscopy, thus permitting structural connections to be correlated with functional behavior. In addition to possibly adding a powerful new tool to those available for learning how the sense of smell works, this project is expected to provide further data on how nerve networks receive and process information, potentially contributing to the development of better man-made systems for processing information.